Three Dimensional Structure of the Earth's Mantle

The proposed continuation of studies of the three-dimensional structure of the mantle expoit the large data sets created under previous funding, and the inversion techniques which have been developed, to recover more complete information on mantle heterogeneity and to quantify the uncertainty of the resulting models. It is proposed to study the P-wave heterogeneity of the upper mantle, to assess the requirement for anisotropy and to implement a number of extensions and enhancements of present techniques aimed at increasing the information which can be extracted from the data.